Collaborative Research: CNS Core: Medium: Parallel and Real-Time Multicore Scheduling for an Efficiently-Used Cache (PARSEC)

Safety-critical systems that have strict “real-time” requirements are becoming increasingly ubiquitous and complex. Epitomizing this recent trend toward sophisticated real-time systems are autonomous vehicles, which must perform image recognition, machine learning, routing, and planning tasks, simultaneously and with minimal delay. Furthermore, these real-time computational tasks must execute upon shared hardware (e.g., processors, memory, storage) due to the severe constraints on the size, weight, and power of the entire system; however, the sharing of computer resources creates tremendous contention and competition between tasks. This project addresses a fundamental challenge of how multiple real-time, safety-critical tasks can effectively share the underlying memory architecture and still meet timing constraints. In particular, this project will develop a novel system design and analysis framework called PARSEC (Parallel and Real-Time Multicore Scheduling for an Efficiently-Used Cache). PARSEC contributes to the state-of-the-art with (a) new multicore scheduling algorithms that explicitly manage how contending tasks share memory resources; (b) new formal analysis techniques that verify that a system’s timing constraints are satisfied with existing memory resources; and (c) a set of open-source automated tools that will enable system designers to utilize the framework on commercial off-the-shelf processing architectures. PARSEC will be implemented and evaluated upon the popular RISC V architecture to facilitate wide dissemination to the public.

This project will result in safer, more efficient designs of time-sensitive systems, including autonomous vehicles and robotics. Furthermore, the resulting research and system design techniques in this project can be applied to any real-time, safety-critical systems executing concurrent computational tasks upon a shared processor and memory. The reduction in contention in the memory hierarchy obtained from project artifacts will potentially lessen demands on power and fuel in safety-critical systems, decreasing their carbon footprint. The project will benefit the educational missions of University of Nevada Las Vegas and Wayne State University by providing a unique training, education, and experiential learning opportunity for undergraduate and graduate students via course projects related to safety-critical system design. To aid other researchers, this project will also disseminate research results through publications, public talks, tutorials, project websites, and online videos.